Free Probability and the Large N Limit (V)

This award provides funding to help defray the expenses of participants in the conference "Free Probability and the Large N Limit (V)" that will be held March 22-26, 2016, on the campus of the University of California-Berkeley.

This event is the fifth in a series of workshops that have focused on the subject of free probability, an active research area closely tied to the theory of operator algebras. The meeting will bring together and foster collaborations amongst researchers from the following fields: free probability; operator algebras; random matrix theory; probability theory; subfactor theory; combinatorics. The conference program provides ample opportunity for graduate students, postdocs, and other young scientists to present their work.